Refresher and Enrichment for High School Chemistry Teachers in Rural Midwestern U.S.

This project is designed to strengthen the background and preparation of high school chemistry teachers from rural Midwestern United States. Twenty-five secondary school teachers from this region who are assigned to teach chemistry but who have less than a minor of formal preparation in chemistry, will be selected as Phase I participants. These teachers will spend four weeks during the first summer (1990) in an intensively scheduled laboratory and lecture workshop during which topics applicable to high school chemistry will be emphasized along with appropriate laboratory and demonstration activities. The participants will work closely with mentor teachers, in a ratio of five participants/mentor, who are considered to be the area's strong chemistry teachers as well as with the project staff. Two Friday/Saturday sessions are planned for the academic year following the summer workshop. Dr. Vernon Thielmann of SMSU and the mentor teachers will conduct extensive follow-up visits with these teachers in their classrooms. During the second year of the project, Phase II will commence in which at least fifteen of the Phase I teachers will continue their study of chemistry and further enhance their strategies for teaching high school chemistry. This four-week summer will include several theoretical topics, more training in organic, biochemistry, environmental chemistry and computer-aided instruction and simulation. Additional teachers who have been identified as having at least a minor in chemistry will be selected in order to bring the number of Phase II teachers to twenty-five. This renewal project is the culmination of a previously successful effort to enhance the background and teaching strategies of high school chemistry teachers. This project will have reached a large number of the secondary chemistry teachers in the rural areas of the Central Midwest states of Arkansas, Iowa, Kansas, Missouri, Nebraska and Oklahoma. Teachers in rural areas tend to be among the most isolated and the least interactive with their peers. This project not only addresses the content and teaching strategies issues, but establishes a network of colleagues, mentors and University staff. The small cost-sharing of about 3% of the grant request is indicative of the relatively poor financial status in the area, not the willingness to share expertise and facilities.